Problems in Operator and Matrix Analysis

ABSTRACT:

Professors Rodman, Spitkovsky and Woerdeman will continue their study of a
variety of problems in operator and matrix analysis and their applications
in science and engineering. These include: (1) Completion of Triangular
Operators, (2) Interpolation, (3) Indefinite Inner Product Spaces, (4)
Almost Periodic Factorization, (5) Orthogonal Polynomials of Several
Variables and Generalizations. For completion problems, invariants and
semiinvariants of the triangular group action will be studied and then
used in the Jordan form and operator spectrum assignment problems. Normal
completions and positive definite 2D Toeplitz completions will also be
looked into. Multipoint interpolation for matrix valued functions will be
developed, and further advances in interpolation of matrix and operator
functions with symmetries will be obtained. Applications of non-stationary
interpolation will be explored. Classification of normal operators on
indefinite inner product spaces will be developed, and generalized further
to a spectral theory for sets of commuting J-selfadjoint operators. Study
of polar decomposition and J-spectral factorization will be continued. The
PIs will also continue their research on positive and contractive
extension problems for almost periodic matrix functions in several
variables, with additional emphasis on the computational aspects. The
related issues include invertibility and Fredholmness criteria for
Toeplitz operators with almost periodic matrix symbols, finite section
methods for these operators on Besikovitch spaces, and explicit
factorization of almost periodic matrix functions in one and several
variables. Orthogonal polynomials of several variables,
related minimizing polynomials, and their connections with Riemann-Hilbert problems will be investigated with the use of the new band method developed by the PIs recently.

The proposed research concerns classical areas of analysis and operator
theory. The choice of topics is both influenced by and aimed to
applications. For example, the expected results in the theory of
orthogonal polynomials for several variables and related completion
problems will be used in filter design, compression and analysis of
images, texture modeling, and multivariate stochastic processes.
Classical (Wiener-Hopf) factorization has been used as a powerful tool in
integral equations, partial differential equations and
diffraction theory. The PIs will continue their study of its natural generalization
to almost periodic matrix valued functions (of one and several variables) which
arises in consideration of integral equations on finite intervals and
related problems in inverse scattering and other parts of mathematical
physics. Another example concerns polar decompositions
of operators acting on Krein spaces motivated by linear optics of polarized light.
Interaction with scientists and engineers is anticipated. In addition, the PIs will
also involve undergraduate students in their research.